Mossbauer Studies of Nitrite Reductase and Vanadium-containing Nitrogenase

Living matters are sustained by large-scale cycles of energy and chemical elements, and one of the most essential elements in biological materials is nitrogen. To study the many different biological processes which govern the nitrogen status in the biosphere is, therefore, of vital importance. Nitrogenase and nitrite reductase are two enzymes which catalyze key steps in the nitrogen cycle. Nitrogenase catalyzes the conversion of atmospheric dinitrogen into ammonia (nitrogen fixation) and many microorganisms use it to assimilate nitrogen into the living system. Nitrate reductase reduces nitrite to ammonia and a variety of nitrate-reducing bacteria, as well as some sulfate reducing bacteria, use it for terminal respiration and dissimilates nitrogen back to the physical world. Structural and functional studies of these enzymes are therefore of fundamental importance and should provide information pertinent to the understanding of our living environment. In this application, Dr. Huynh proposes to perform Mossbauaer studies of the following enzymes: 1. the vanadium-iron protein of the nitrogenase enzyme system from Azotobacter vinelandii. 2. the nitrite reductase from Desulfovibrio desulfuricans. Both the vanadium-iron protein and nitrite reductase are complex enzymes containing multiple iron centers which can be most effectively studied by Mossbauer spectroscopy. The proposed experiments include (i)characterizations of the native enzymes, (ii)redoxtitration studies, (iii) pH- dependence investigations and (iv)examinations of substrate- and ligand-binding effects. The Mossbauer results will be correlated with data obtained form other physico-biochemical methods, including optical and electron paramagnetic resonance techniques. Dr. Huynh hopes to fully characterize the iron centers in these enzymes, to obtain physical and biochemical properties, to reveal the roles these iron centers play in their enzymatic functions and to enhance our understanding of the mechanisms of biological nitrogen fixation and nitrite reduction.